U.S.-Italy Planning Visit: Ecological, Bioenergetic and Life History Consequences of Invasions of Land and Freshwater by Isopod Crustaceans

0070142
Glazier

This six-month award will provide support for Douglas Glazier of Juniata College and an undergraduate student to plan a cooperative research project with Dr. Alberto Basset and his students at the University of Bologna, Italy. The objective of the project is to examine the ecological, bioenergetic, and life-history consequences of invasion of land and freshwater by marine isopod crustaceans; the Italian site provides several common species of marine, freshwater and terrestrial isopods. At the planning stage, Drs. Glazier and Basset will prepare for future field and laboratory experiments and observations that will test several hypotheses concerning potential physiological, bioenergetic and ecological causes of the life-history differences observed, and their population consequences. The long-term goal of the collaboration is to demonstrate that isopods are excellent model systems for studying the "macroevolutionary ecology" of major habitat shifts, and to increase understanding